U.S.-Germany Cooperative Research: Theoretical Modelling of Hot Nuclear Matter

9981342
Bauer
This award supports Wolfgang Bauer and junior researchers from Michigan State University in a collaboration with Horst Stoecker of the Department of Physics at the U. of Frankfurt, Germany. The project will focus on a study of the phase transition in high-density baryon systems from a state in which quarks are confined to a state where quarks and the conveyors of the strong force which binds quarks together, gluons, act as free particles. This transition is of great interest in modern high-energy nuclear physics, and the details of the transition from confined to unconfined state will be sought in this collaboration. Each group brings unique and needed expertise to the problem of producing a realistic model of the phase transition which will, in turn, be of great importance in interpreting the experimental results that will come from the Large Hadron Collider in 2005. Together, the groups will be able to address the exciting physics of ultrarelativistic heavy-ion collisions.